Collaborative Research: CEDAR--Space Weather Impacts on Earth's Exospheric Energetics through Physics-Based and Machine Learning Methods

Earth’s exosphere is the uppermost atmospheric region, extending from about 500 km altitude to many Earth radii into space. It is dominated by atomic hydrogen, which absorbs and re-emits solar ultraviolet light, producing a faint glowing cloud known as the geocorona. Although extremely tenuous, this hydrogen cloud extends through the near-Earth plasma environment, allowing neutral atoms and charged particles to interact across a large region of space. During geomagnetic storms, changes in the denser atmosphere below the exosphere and in the surrounding charged-particle environment can modify the density and energy distribution of exospheric hydrogen. These changes remain poorly quantified, limiting our ability to understand atmospheric escape, interpret ultraviolet observations of the geocorona, and improve constraints on satellite drag and orbital lifetime estimates. The proposal intends to utilize upper atmosphere models and machine learning techniques to address these current knowledge gaps. The work will advance space weather research while preparing a technically skilled STEM workforce capable of supporting innovation, resilience, and economic growth.

The research team will combine physics-based modeling, machine learning, and ultraviolet observations to determine the processes responsible for storm-time changes in the hydrogen exosphere. The approach uses an exosphere model to simulate the global density and energy distribution of neutral hydrogen under quiet and disturbed space weather conditions. The model will be driven by thermospheric boundary conditions and coupled with inner-magnetospheric plasma populations to quantify the effects of thermal processes, solar radiation pressure, and charge exchange within plasmasphere and ring-current ions. Model results will be evaluated using Lyman-alpha observations of the geocorona from space-based instruments, together with machine-learning methods that provide independent constraints on hydrogen density. The results of this work will benefit scientists who model Earth’s upper atmosphere, planetary exospheres, and space weather impacts on near-Earth space, while improving the use of ultraviolet remote sensing observations to study geospace. By providing better constraints on neutral hydrogen density, the project will also support improved representations of the upper-atmospheric neutral environment used in satellite drag and orbital lifetime estimates.